NSF GRADUATE TEACHING FELLOWS IN K-12 EDUCATION (GK-12): Preparing Science Graduate Students to Meet the Challenges of K-12 Education

This goal of this program by Florida State University and the Leon County School District is to increase the number of science professionals who are prepared and willing to make meaningful contributions to science and mathematics activities in grades K-8. Graduate fellows engage in extensive learning to prepare them to become valuable classroom resources for K-12 teachers and students. Topics of study include an overview of child development, assessment techniques, state and national science standards, and how students learn. Following this preparation, Fellows will co-teach with selected K-8 teachers. Fellows also participate in district summer school enrichment classes and summer science camp activities. This project is receiving partial support from the Directorate for Mathematics and Physical Sciences